Phospholipase A2 and Mixed Micelles of Phospholipid and Surfactant

Dr. Dennis is carrying out studies on the detailed mechanisms of action of cobra venom phospholipase A2 at the lipid-water interface. He has accumulated evidence that its activity is dramatically affected by interfaces, that it binds more than one phospholipid at the lipid/water interface and that this binding can cause both an activation and an aggregation of the enzyme. It is planned to probe the structural details of the interaction between substrate, activators, products and the phospholipase A2. Enzymes of lipid metabolism are unique in that they act physiologically on complex substrate aggregates. Discerning the means by which these enzymes carry out their cellular functions requires not only a knowledge of classical enzymology, but also an understanding of how these large aggregates and the interfaces they form modulate enzyme and substrate behavior. The goal of this research is to understand how lipolytic enzymes interact with aggregated lipids and their interfaces. The study also has direct application to understanding how the phospholipase A, which is involved in arachidonic acid release for prostaglandin biosynthesis, acts.***//